Dynamics of Policing Across National Borders

In an increasingly interdependent world, current social, economic, and technical changes are weakening, blurring, or eliminating legal, spacial and temporal borders. In recent years, there has been an acceleration of the internationalization of crime and mechanisms for its control. Yet, little is known about the social structures and processes involved in law enforcement across international borders. This project focuses on the organizational dynamics, interactions, and dependencies involved in international policing. Systematic studies will be conducted in cooperation with European scholars in England, Belgium, France, Germany, and the Netherlands. Rather than taking the nation-state as the static unit of analysis, the project focuses on dynamic interdependencies involving organizational behavior, and process aspects of cross-national policing. The six case studies involve (1) new cross-border policing organizations and the weakening of borders; (2) the import-export of democratic policing; (3) social control technology across borders; (4) legal mobilization such as enforcing EEC rules against fraud; (5) private police organizations across borders; (6) order-maintenance and international groups. The methods of investigation involve observation, interviews, and the analysis of documentary data in all of the countries involved. Through these studies, concepts and hypotheses required for understanding cross- border policing will be developed. This project has considerable potential to yield knowledge about the organizational, behavioral, and process aspects of formal social control systems and the structure of nation-states themselves as they change and adapt to an increasingly global context. Not only can awareness of cross-border influences help in understanding the dynamic nature of crime and enforcement patterns, but also the research will call attention to the systemic aspects of many forms of law-related behavior across juridical borders.